Programmable Quantum Processors

0139692
Hillery
Quantum information is a new field that studies the representation and
processing of information by quantum mechanical systems. Present computers,
which are classical devices, represent information by bits, which can be
either 0 or 1. A quantum computer represents information by qubits, which
have the potential to be 0 and 1 simultaneously. This leads to profound
differences in what can be done with classical and quantum information. In
this project we will study programmable quantum information processing logic
circuits. Most of the quantum circuits that have been proposed so far
perform a single task. It is essential to go beyond this and to be able to
design circuits with two inputs, one the data to be acted upon and the
second, the program, that encodes the operation be performed. Both the data
and the program are quantum states. These circuits can be either
deterministic, succeeding in performing the desired operation all of the
time, or probabilistic, performing the operation only some of the time.
Probabilistic circuits can perform a much larger class of operations than can
deterministic ones. We want to study how one can design circuits to perform
specific sets of operations, how these operations are to best be encoded into
quantum states, and how to optimize the probability of successfully
performing the desired operation in a probabilistic processor.